SGER-Suction Pile Retrieval

CMS-0225828
PI: Sangchul Bang
Institution: South Dakota School of Mines and Technology
Title: SGER: "Suction Pile Retrieval"

ABSTRACT

An Innovative underwater foundation system utilizing suction piles
was introduced in the offshore industry recently. Since then, suction piles
have been successfully used in numerous occasions on a variety of offshore
structures. Suction piles have advantages over conventional underwater
foundation systems due to their simplicity and efficiency. More obvious
advantages of suction piles are easy installation, large bearing capacity,
and retrievability.

The retrieval of suction piles is achieved through careful
application of increased water pressure inside the pile. The applied water
pressure must be determined carefully so that the suction pile can be
retrieved safely. The main objective of this study is to identify the relationship
between the applied positive water pressure inside the pile and the
resulting pile pull-out movement through full-scale field tests. These
experiments will provide an invaluable insight for the future development of
an analytical solution for safe suction pile retrieval.

The field retrieval and instrumentation will be designed and
supervised by the principal investigator and performed by the Naval
Facilities Engineering Service Center with three suction piles that were
successfully installed by the principal investigator in 1999. Significant
matching contribution commitment has already been made by the Naval
Facilities Engineering Service Center as evidence of their interests and
emphasis on the expanded use of suction piles.